Travel to Attend: Seminar on Research Involving Validation of In-Situ Devices in Large Calibration Chambers

This is a travel grant for the investigator to present the results of his research at the seminar on validation of in situ devices in Milan, Italy, March l8-l9, l986. This is a specialty seminar and the investigator's attendance at this meeting will provide an exposure of U.S. research results to the international community in geomechanics.